CAREER: Bistatic and Mobile Multiple-Doppler Technique Development and Educational Laboratory

9703032 Wurman Under the Faculty Early Career Development Program (CAREER), the Principal Investigator will pursue research and educational activities associated with two new and innovative uses of Doppler radars for meteorological research. Single or multiple Doppler radars at fixed sites have been utilized for many years in meteorological research and some aspects of their use are very mature. Due to technological advances, research Doppler radars have evolved to the state where they can be mounted in mobile ground-based and airborne platforms. Under other support, the Principal Investigator has begun to develop two mobile ground-based Doppler radar systems which provide many advantages over fixed sites. Primary among these are the ability to acquire many more data sets and to obtain data at much higher spatial resolution. Along with these advantages, however, also comes special problems in data analysis/synthesis. For example, higher elevation angles than normally encountered with fixed radar sites may cause some potential problems. Additionally, the possibility of collecting data while moving also provides special challenges in developing optimal experimental designs and in analysis of data. The second area of research the Principal Investigator will pursue is the use of bistatic multiple Doppler networks. This is a network consisting of one transmitting radar with a network of many, distributed receivers. This is very new technology that has the advantage, among many others, of providing relatively inexpensive mapping of wind fields over large areas. The Principal Investigator will continue research into the best design and utilization of such networks. Under the educational component of this CAREER award, the Principal Investigator will incorporate the mobile Dopplers and bistatic networks into graduate courses as well as host Summer workshops for students. This will integrate students into research that is at the very cutting e dge of development of new meteorological radar technologies. ***